S-STEM Scholarships at Oberlin College: Supporting Undergraduate Engagement in Computation and Modeling

This project is providing scholarship support for academically talented but financially needy students with a demonstrated interest in scientific computation and mathematical modeling. Much of the intellectual merit of this project lies in its explicit development of student expertise in these two areas that are critical for the next generation of scientific researchers. The course and curricular underpinnings of this emphasis lie in the efforts of a group of faculty from nine departments who comprise the Oberlin Center for Computation and Modeling which serves as a catalyst for teaching and student-faculty research using these approaches. The broader impacts of the project are felt in the further development of the Center and the creation of a new cross-disciplinary computation and modeling concentration option for students that will persist as an option for all subsequent students after the formal scholarship support period ends.